American Indian Internet Access and Training Project

9505721 Buller This proposal seeks to provide a direct Internet connection between Native American communities including Community Colleges that as of yet no network connectivity. Training for the classroom use of the Internet will provided and will be done in conjunction with the AISES Teacher Enhancement Project. This will provide over 100 educators of American Indian students with their first look at network use and networked information. Thus the major goal of facilitating access to the Internet for as many Native American as possible will be provided.